Preparation of Highly Substituted Axially Chiral Compounds Using Reductive Couplings

In this project, Professor Donald Watson of the Department of Chemistry and Biochemstry and the University of Delaware is studying new catalytic processes to synthesize a class of compounds known as axially chiral biaryls. These types of compounds are commonly found in pharmaceuticals, catalysts, and electronic materials, yet they are challenging and time consuming to make with existing methods. The project will explore a new, faster way to prepare these types of materials, and will seek to understand the fundamental principles that underlie the new chemistry developed. Machine learning techniques will be employed to increase efficiency and decrease the time to new compound discovery. The research in this program has the potential for broad impact on those industries that use axially chiral biaryl compounds, impact graduate student training, and will promote chemistry careers to all Americans by outreach to high school students across the state of Delaware.

This project will develop the chemistry of reductive couplings of aryl halides using transition metal catalysis. Both simple homo-dimerization reactions and cross-coupling reactions that join two different aryl halides will be explored, with additional focus on reactions that build highly substituted, chiral biaryl compounds. Nickel catalysts will be examined for these transformations, with both thermal and electrochemical reductive couplings to be examined. The electrochemical routes are intended to address scalability issues of importance to industry. Machine-learning and high throughput experimentation methodologies will be employed to determine the rules that govern the formation of C1-symmetric verses C2-symmetric products and to enhance both catalyst and product discovery.